Mathematical Sciences: Multi-Dimensional Statistical Analysis

The underlying theme that unifies this project is the development of inference for multidimensional statistical analysis. This work has several different thrusts, some of which have been of continuing interest to the principal investigator, others new. The primary area of interest is the generation of multivariate distributions with given marginal distributions. This will include research on bivariate distributions generated from Bernoulli distributions; families of bivariate distributions; families of distributions generated from mixtures; bivariate uniform distributions; bivariate logistic distributions; and bivariate distributions with constraints. Multivariate models with structured parameters and measures of inequality will also be investigated.